Engineering Foundation Conference on Mechanical Properties of Interfacial Materials to be held January 14-19, 1996 in Kona, Hawaii

9623179 Eastman This award supports an international conference on "Mechanical Properties of Interfacial Materials" held in Hawaii, 14-19 January 1996. The format offers many opportunities for discussion of scientific issues dealing with effects of interfacial properties on mechanical behavior. Invited overview talks include mechanisms of deformation, grain boundary design, interfacial fracture, bioceramics, nanostructures, interface bonding, composite design and multilayer composites,, and impurity segregation effects. Support is provided for young scientists, engineers and graduate students to attend the meeting. ***